Ice Core Records from Monsoon Asia

Abstract ATM-9417818 Wake, Cameron University of New Hampshire Title: Ice Core Records from Monsoon Asia The highlands of central Asia possess a diversity of natural archives from which detailed paleoclimatic records can be developed (e.g., lake sediments, loess, tree rings, ice cores, glacier fluctuations, geomorphologic features). Despite this potential, relatively little is known concerning climatic changes in the region over time scales ranging from centuries to hundreds of thousands of years. The primary objective of this project is to develop multi-variate, well-dated, high-resolution (annual) paleoclimatic records for monsoon Asia for the last 500 to >1000 years. This project will focus on the chemical and physical analysis of deep (approximately 200m) firn/ice cores recovered from two high elevation (>6000m) glaciers in the Nepalese Himalaya. Time-series developed from the physical and chemical analysis of the ice core will form the basis of a regional paleoclimatic record. The proposed ice core research in monsoon Asia represents a key component of the Himalayan Interdisciplinary Paleoclimate Project (HIPP). HIPP is aimed at improving our understanding of the behavior of the Indian and Plateau monsoons over the past 2000 years, 20,000 years, and beyond. Multi-variate paleoclimatic records from a wide variety of natural archives in the highlands of Central Asia. In addition, multivariate, high resolution ice core records from the Himalayas will be compared directly with similar detailed ice core data records recovered from Tibet, Peru, Greenland and Antarctica, thereby developing a broader, more globally comprehensive ice core data base from which to investigate global change.